The Enzymes of Chlorophyll a Biosynthesis.

This work will pursue earlier findings by this laboratory on several heretofore unknown chemical species of chlorophyll. These newly described chlorophylls suggest different pathways for greening in higher plants. Now that the new compounds have been described, the enzymes responsible for forming them will be isolated and characterized. Then the regulation of the pathway and its enzymes can be determined.%%% Chlorophyll catalyzes the conversion of solar energy to chemical energy via the process of photosynthesis. Without photosynthesis, organic life is not possible in the biosphere. It now appears that different Chl chemical species have different functions in photosynthesis and are formed via different biosynthetic routes. A full understanding of the biochemistry of the various Chl chemical species is mandatory for a thorough understanding of photosynthesis.***//